Support for the Thirteenth International Conference on Architectural Support for Programming Languages and Operating Systems, 2008

This symposium is a premiere forum for research involving the interaction of computer architecture, compilers, and operating systems. It brings together leading researchers from these diverse communities to facilitate significant collaboration and cross-fertilization of research ideas to advance the state of the art in computing. The purpose of this outreach activity is to support travel for students and faculty who might otherwise not attend ASPLOS. The primary goal is to increase participation of underrepresented minorities (including women) and faculty members from non-Ph.D.-granting institutions by actively seeking out and giving priority to these persons when awarding travel grants.